POWRE: Solid-State NMR Applied to Polymer Characterization

9753258 Alamo This project, based on solid state NMR applied to the characterization of polymeric materials, seeks new knowledge and understanding through the study of partitioning of the defects of metallocene polypropylenes and propylene copolymers into different phases of the crystallite lamellar structure. Additionally, a study of the phase structure and the crystallographic phase transformations of poly(propylenes) will be conducted. The project is collaborative involving the National Institute of Standards and Technology(NIST), and the unique facilities of the National High Magnetic Field Laboratory (NHMFL). The project is co-supported by the Division of Materials Research, and the MPS OMA(Office of Multidisciplinary Activities). %%% This is a research enhancement grant made under the Professional Opportunities for Women in Research and Education (POWRE) program. The research will contribute basic materials science knowledge at a fundamental level. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***